Very High Spin Organic Polyradicals

A series of high spin polyradical molecules with distinct three-dimensional shapes will be synthesized and characterized. The polyradical shapes will be imposed by either steric hindrance (dendrimers) or covalent bond networks (cages). Magnetic analysis will be accomplished by utilizing SQUID, NMR, and ESR techniques. Molecular solids comprised of high spin polyradicals will be developed and investigated, and the feasibility of making ultra high spin polyradicals will be demonstrated. The investigation will provide a general model for electron spin ordering as a function of distance and number of unpaired electrons. %%% This grant from the Organic Dynamics Program supports the work of Professor Andrzej Rajca at the University of Nebraska on the synthesis and characterization of high spin organic molecules that possess several unpaired electrons. Electrons in typical organic molecules are paired and thus have no magnetic properties, whereas the target molecules will be prototype building blocks for novel organic magnets. This investigation should provide basic information required to produce magnets on a molecular level for a variety of technical and scientific applications impacting on the electronics and communications fields.